U.S.-New Zealand Cooperative Research: A Review of Salmonid Invasions Worldwide

9602574 Fausch This is a 12 month award proposed by Dr. Kurt Fausch, Colorado State University and Dr. Colin Townsend, University of Otago, New Zealand. Dr. Fausch requests funds for travel to New Zealand. The primary objective of this project is to understand salmonid invasions worldwide. The tasks are to analyze the characteristics and mechanisms of salmonid invasions, to test the predictions based on invasion ecology theory and available data, and to develop new models for predicting effects of specific introductions. This project is important in the area of ecology and can lead to significant advances in our understanding of salmonid invasions worldwide.